Understanding Low-rise Building Aerodynamics by Leveraging Machine Learning

Recent major structural damage, economic losses, and societal disruptions due to hurricane, tornado and downburst wind hazards highlight the need for improved resiliency of low-rise structures in coastal communities. This research will look to estimate wind loads on a variety of low-rise structures by establishing a machine learning (ML) framework to complement physical wind tunnel testing. Due to high costs of physical experiments in laboratories, peak wind loading on buildings are difficult to quantify using wind tunnel tests alone. Uncertainties in the estimation of peak wind effects on cladding elements can render design provisions unrealistic and cause building envelope failure and water intrusion. The ML framework looks to generate the necessary information for advancing wind design for low-rise building communities. Contributions of the research will provide new knowledge on wind effects at the building level which can help to enhance community resilience and national welfare. These contributions are important for the natural hazards engineering community to develop improved designs for new buildings and innovative retrofitting approaches for existing buildings, thus benefiting society through future damage reduction during windstorms. This award will contribute to the NSF's statutory role in the National Windstorm Impact Reduction Program (NWIRP).

The overall goal of this research project is to utilize ML methods informed by large-scale model wind tunnel testing to: (1) provide a quantitative, robust, and cost-effective ML methodology that will enable a deeper understanding of building aerodynamics; and (2) address a major challenge regarding scaling effects on bluff body aerodynamics by predicting wind loads on full-scale real buildings based on data obtained for scaled wind tunnel models via an advanced data-driven technique, known as few-shot learning. The scientific objective of this project is to create, verify, and validate a data-driven framework to accurately predict wind loads on low-rise structures and associated uncertainties, while considering inflow turbulence, geometry, and scaling errors due to Reynolds number violation. This data-driven framework seeks to enable professionals to predict full-scale pressures more reliably on buildings, leading to improved design. The central hypothesis is that with a data-driven ML approach, low-rise building aerodynamics and the associated sensitivity to critical parameters can be better understood, while the need for expensive physical testing or numerical simulations can be substantially reduced. The outcomes of this study will provide an extensive data repository for wind effects on low-rise structures. Wind tunnel testing will be conducted at the Natural Hazards Engineering Research Infrastructure (NHERI) Wall of Wind at Florida International University. Project data will be archived in the NHERI Data Depot (https://www.DesignSafe-ci.org).